Experimental And Analytical Investigation of the Durability of Reinforced And Post-Tensioned Concrete In a Simulated Marine Environment

The durability of concrete is an important factor in the long time performance and safety of concrete structures. this project will investigate the effects of various admixtures, embedded materials, and different mix combinations or the durability of the concrete. Analytical and experimental investigations will be conducted. This is also a joint project with Canada.